Aviation Software Systems: Design for Certification Workshop

This award is for a workshop on the topic of "Aviation Software Systems: Design for Certifiably Dependable Systems" to be held in Alexandria Virginia on October 5-6, 2006. This one of several workshops in a series of activities concerned with high-confidence and certifiable software and systems, sponsored in cooperation with the High Confidence Software and Systems (HCSS) Coordinating Group (CG) under the NSTC Networking and Information Technology Research and Development (NITRD) Subcommittee.

The purpose of the workshop is to provide an open, working forum for leaders and visionaries concerned with Aviation Software and Systems from industry, government, research laboratories, and academia, with the goal of developing a roadmap to overcome crucial aviation software and systems issues and challenges facing the specification, design, certification, and testing of aviation software systems.